An Infrared Investigation of Comet Hale-Bopp (1995 01)

AST-9615605 Harold Weaver Dr. Harold Weaver will pursue an infrared wavelength investigation of the vaporization behavior of comet Hale-Bopp as its distance from the Sun changes. He is interested in measuring molecular production rates in order to examine the organic molecular emissions from the comet, with particular emphasis on methane and carbon monoxide. =============================